An Integrated Strategy for Testing User-Oriented Software Systems

This research develops an integrated strategy for the effective
testing of ubiquitous software systems accessed by the massive user
population, such as those used to support the Internet and World Wide Web (WWW),
to ensure their satisfactory performance and reliability from the users'
perspective. This strategy includes three important components:

1. Development of a set of high-level operational profiles (OPs),
which enumerates major functions to be supported by a software and their
usage frequencies by target users, organized in groups of related user
functions.

2. For each high-level function group above, a Markov chain based
model is constructed to exhaustively test high-level operations and
selectively test important low-level implementations, with the testing results
analyzed to identify system bottlenecks for reliability improvement.

3. Reliability of the critical parts identified above can be assured
using traditional testing techniques or other quality assurance techniques.

This research will involve industrial partners, including IBM, Nortel
Networks, and Lockheed-Martin Aeronautics, for result validation,
software tool support, and future deployment.